Interior Point Methods: Semidefinite and Nonlinear Programming

In a semidefinite programming (SDP) problem, a linear function of a symmetric matrix variable X is minimized subject to linear equality constraints on X and the essential constraint that X be positive semidefinite. Several problems can be cast as SDP problems including linear programs, convex quadratic problems with convex quadratic inequality constraints, matrix norm minimization and a variety of maximum and minimum eigenvalue problems. In addition, SDP has many applications in enginnering, combinatorial optimization and statistics. It is known that several interior point algorithms for linear programs can be extended to SDP problems. As in linear programming, many of these methods are polynomially convergent and perform very efficiently in practice. In particular, the class of primal-dual interior point methods and their higher- order variants are the most effective interior point methods. In contrast to linear programming, there are many ways one can compute the Newton search directions used in primal-dual algorithms for SDP. For this reason, the theory of primal-dual methods for SDP is substantially more difficult than that for LP. This project addresses the development of the theory and implementation of primal-dual interior point algorithms for SDP problems. The objectives of this research project include: 1) developing a new primal-dual interior point algorithm for SDP; 2) advancing the knowledge of the theory of polynomial and superlinear convergence analysis of primal-dual methods for SDP; 3) studying the existence and asymptotic behavior of continuous trajectories for SDP; 4) developing new higher-order primal-dual methods for SDP; 5) implementing the new proposed algorithm and comparing it against existing primal-dual interior point methods; and 6) extending primal-dual interior point algorithms to the context of nonlinear SDP and complementarity problems.